CSR-AES: Feedback-Driven Adaptive Multithreading

This research project investigates how to extend the scalable model of
dynamic multithreading to encompass three key functionalities ---
multiprogramming, interprocess communication, and support for I/O ---
without requiring painstaking manual planning, tuning, or configuring.
The research focuses particularly on using provably good
``feedback-driven'' strategies to accomplish this end. The
researchers are developing a multiprogrammed multithreaded system to
embody these strategies and provide a research vehicle for discovering
additional properties of interacting adaptive jobs. Among the
techniques under study is ``history-based feedback,'' which offers a
promising foundation for provably effective scheduling and resource
allocation strategies.
This research hopes to make multiprocessors more efficient and easier
to use by the vast majority of computer users, not just by expert
computer scientists. Open-source software developed in the course of
the research is freely available to anyone on the World Wide Web.
Course materials on multiprocessor scheduling are distributed via the
MIT OpenCourseWare project.